Development of Remote Sensor Microsystems for Environmental Monitoring

One of the most important fields of application for sensor systems is sensing
environmental pollutants- particularly the detection of chemical and bacterial
contamination of drinking and recreation waters. Sensing systems can provide continuous
monitoring of chemical and bioanalytes. In phase I of this research we will develop a
new type of chemical and biosensor system which provides a class of economical and
portable devices that can detect desired analytes sensitively and rapidly. The intrinsic
selectivity of this microsensor chip arises from the specific nature of bio-recognition
reactions, e.g., antibody-antigen reations. The sensitivity depends upon the coupling
between the recognition reaction and the transducer and upon the inherent sensitivity of
the transducer. We will develop ultra high sensitivity wide bandgap semiconductor based
shear acoustic wave structures as the common sensor platform for the integration with the
sensing medium. The device will be developed using new Excimer laser micromachining
technology and state-of-the-art immobilization chemistry. The proposed research will be
a systematic multi-disciplinary research and development project involving novel
materials development, new processing and integration technology and a synergy with
our educational program. The goal of the research is to develop an E. Coli and a
pesticide detecting prototype sensor system that can be adapted to a large array of
microsensors, for the detection of a multitude of contaminate sources, during phase II of
the project.